CAREER: Tropical and Nonarchimedean Analytic Methods in Algebraic Geomoetry

The PI will pursue several lines of research in algebraic geometry involving the application of combinatorial and nonarchimedean methods to study algebraic curves and their moduli, plus intersection theory. In particular, he will investigate nonarchimedean approaches to the Gieseker-Petri Theorem and Maximal Rank Conjectures, the weight filtration on cohomology of moduli of curves, and the development of a functorial tropicalization of intersection theory. Into this research program, the PI will integrate an educational program that will include supporting undergraduates as research assistants on carefully selected projects in tropical geometry and working to increase the participation of graduate students and recent PhDs from US institutions in the annual GAeL conference for early career algebraic geometers.

Algebraic geometry studies solution sets of systems of polynomial equations. Over a nonarchimedean field, one can split the problem of understanding such a solution set into two parts. What are the possible valuations of solutions? And what are the solutions with a given valuation? The set of valuations of solutions has a rich combinatorial and polyhedral structure, and is the primary object of study in tropical geometry. Recent developments in this field make it possible to resolve subtle questions about the geometry of the actual solution set using the geometry of these sets of valuations. This award supports efforts to refine these new methods and explore deeper applications to open problems in algebraic geometry.